Engineering Research Equipment Grant: Mass Spectrometer forCombustion and High Temperature Chemical Reaction Engineering Research

The mass spectrometer will provide an essential tool to significantly further the progress on research programs in combustion and high temperature chemical engineering.